VIII Latin American Congress on Probability and Mathematical Statistics: Mathematical Sciences at the Interface

0122177
Carriquiry

The Latin American Congress on Probability and Mathematical Statistics (Congreso Latinoamericano de Probabilidad y Estadistica Matematica, (CLAPEM), will take place during November 12-16,2001 in La Habana, Cuba and will be hosted by the Universidad de la Habana. Organizers are Dr. Alicia Carriquiry, Iowa State University and Dr. Andrea Rotnizky, Harvard School of Public Health. Applied probability and statistics have only recently become important areas of research to areas of inquiry such as biology, engineering, and economics, and only recently has Latin America begun serious interaction with scientists in other disciplines. The goal of this activity is to provide opportunity to young Latin American and US researchers to establish long-term cooperation, and to encourage young Latin American scientists to pursue graduate studies in the US.

The activity will include short courses, talks, and posters. The short courses will provide the young scientists the opportunity to be taught by international leaders in this area, while the poster sessions will give them an excellent venue to present their work and to interact with more senior conference participants. It will most likely play a significant role in the development of the scientific enterprise in Latin America.